Midwest Geometry Conference: 2002-2004

DMS-0202812
L. Peterson, T. Branson, G. Jensen, G. Olafsson, A. Ryan

This award provides partial support for students and active research
mathematicians and scientists with limited means of support to attend
and participate in the 2002, 2003, and 2004 meetings of the Midwest
Geometry Conference. The award together with other funding will cover
all expenses of the plenary speakers.

The 2002 conference will be held on the main campus of the University
of North Dakota (April 26-28) and will be sponsored by the NSF, North
Dakota EPSCoR, North Dakota State University, and the University of
North Dakota. The conference will include the following four sessions
and speakers:

1. Lie Groups and Geometry. Speakers: Jiri Dadok (Indiana), C. Robin Graham
(Univ. of Washington), and Bernhard Kroetz (Ohio State)
2. Quantum Geometry and Topology. Speakers: Abhay Ashtekar (Penn State, Physics),
Louis Kauffman (Univ. of Illinois at Chicago), and Jack Morava (Johns Hopkins Univ.)
3. Geometric PDE. Speakers: Sigurd Angenent (Wisconsin), Bennett Chow (Univ. of California, San Diego),
4. Gravitation. Speakers: Peter van Nieuwenhuizen (SUNY Stony Brook, Physics),
Andrew Waldron (Univ. of California, Davis)

The organizers expect to recruit two additional speakers. Further
information is available at http://www.und.nodak.edu/dept/math/mgc2002

The 2003 conference will take place at Washington University in
St. Louis, probably in May. Gary Jensen, of Washington University, is
the lead organizer. Tentative conference plans include sessions on
the following four topics:
1. Three-manifolds, hyperbolic geometry, and geometric group theory
2. Geometry, analysis, and probability on discrete groups
3. Minimal submanifolds
4. Surface immersions in space

The University of Arkansas will host the 2004 conference sometime in
2004, most likely in the spring. John Ryan, of the University of
Arkansas, will be the lead organizer. A tentative list of topics for
the conference is as follows:
1. Nonlinear analysis on manifolds and metric spaces
2. Spinor geometry
3. Geometric group theory
4. Non-commutative differential geometry

Organizers of the 2003 and 2004 conferences will develop more detailed
plans in the months immediately preceding the respective conferences.